Upgrading of Computational Resources Used in Geophysical Investigations of the Western U.S

9418583 Humphreys This award provides one-half the funding for an upgrade to the computational resources in the Department of Geological Sciences at the University of Oregon. The institution is committed to providing the remaining funds lecessary to acquire the equipment. The computer system upgrade will be used primarily in the research and teaching programs of several faculty members and their students in geophysics. Their areas of research include regional-scale seismic imaging of the crust and mantle, kinematic and dynamic modeling of lithospheric deformation, seismic imaging of ocean ridge-crest structures, and paleoseismicity studies. ***